STTR Phase I: Engineering Geobacter for Enhanced Electricity Production

0420048
Mahadevan

This Small Business Technology Transfer Phase I project proposes to improve the bioelectrical energy generation capacity of the micro-organism Geobacter sulfurreducens through a novel metabolic engineering approach based on an integrated computational and experimental strategy.

The commercial application of this project will be in the area of biomass processing, for conversion of waste biomass to value added products (i.e. electricity).